A Novel Slurry Jet Pump

The objectives of this research and development program are to provide an improved performance and erosion analysis tool for the industrial and scientific communities; and to develop design criteria for the manufacture and commercialization of a reliable slurry jet pump of high performance and durability. To meet these objectives, a comprehensive numerical simulation program was developed for evaluating particle transport and erosion characteristics in a slurry jet pump. A parametric design is being developed to identify a family of prototype designs. An experimental evaluation is also performed to quantify pumping performance and erosion characteristics for the validation and improvement of the numerical simulation model. With the improved model and experimental data, an efficient, erosion-tolerant, slurry jet pump will be designed for a follow-on commercialization by industry.